Information Technology Workforce - ITWF: Multiple Pathways toward Gender Equity in the Information Technology Workforce

ABSTRACT

Information Technology Workforce (ITWF)

Proposal Id: EIA-0119839
PI: Paula G. Leventman, Thomas P. Cullinane and Ronald F. Perry
Institution: Northeastern U.
Title: Multiple Pathways towards Gender Equity in the Information Technology Workforce

This ITWF award provides support for a study of graduates of an information systems graduate program (MSIS) at Northeastern University, as well as men and women currently working in Information Technology (IT) positions, to understand the factors that influence entry and persistence of women in IT positions. The MSIS program was designed for adult learners who wished to make a career transition to the IT field. The research team will use the longitudinal data collected in the study to develop and validate a model that will predict women's IT career pathways.